Regenerative Neurogenesis in Echinoderms

0076347
Garcia Arraras

Neurogenesis, or the process by which new nerve cells are formed, is an
unusual phenomenon in adult vertebrates. The proposed work focuses on the
regeneration of the nervous system, particularly on the neurogenesis that
occurs after tissue loss or damage. Holothurians or sea cucumbers will be
used to study the formation of new nerve cells, or neurons, in adult
organisms. First, the work aims to explore the regeneration capacities of
the main nervous system and the associated events of cell division and
conversion of the dividing cells into neurons. Second, it studies the
regeneration of the enteric nervous system, or the component of the
nervous system associated with the digestive tract. Finally, it studies
genes coding for proteins known to be important in regenerative and
embryological processes. Cellular, histological and molecular techniques
will be used to achieve these aims.

Neuron loss is associated with mental and motor diseases, learning
impairment, memory loss and many other nervous system-related problems.
Echinoderms are well known for their amazing regeneration capacities.
Studying regenerative neurogenesis in these animals, which are closely
related to vertebrates, will provide basic information on the
understanding of how neurons are formed and regenerated.